RIA: On-line Computation of High Speed Robot Motions

This research addresses the topic of robot path planning. In this project, direct methods for planning high speed motions of realistic industrial robots are developed. A recently developed geometric approach to the dynamic performance of multi-body systems is used. It transforms the complex motion planning problem into a simple geometric task while taking into consideration robot dynamics, actuator constraints, and obstacles in an efficient manner. The method's implied computational efficiency makes on- line computation of close to optimal motions possible. If successful, this research will be a step in improving the productivity and utility of robotic systems. It may allow optimizing automated assembly processes and the operation of flexible automated cells.